The Mechanism of NO Reductases: N-N Bond Formation and Hyponitrite Intermediates

Researchers from the University of Michigan are investigating the molecular mechanisms of enzymes involved in promoting bacterial infection in humans. The diatomic molecule nitric oxide (NO) is a very important immune defense agent in humans. It is produced by immune cells in response to bacterial infection, and it is very efficient in killing invading pathogens. However, some bacteria have developed defense mechanisms against NO. When exposed to NO, for example when attacked by an immune cell, the pathogens produce enzymes that break down NO, either Flavodiiron NO Reductases, which reduce NO to N2O, or Hemerythrin-Like Proteins, which oxidize NO to nitrite. In both cases, the NO is destroyed, allowing pathogens to proliferate in the human body, causing infections that are more difficult to clear for the immune system. How these enzymes accomplish NO degradation, however, is not well understood. The research team seeks to determine the molecular mechanisms of these enzymes, using biomimetic inorganic complexes that accurately model their diiron active sites and their chemistry. This work contributes to the greater effort of fighting infectious diseases and bacterial resistance to antibiotics. The project will provide research opportunities for high school students, with the goal to help grow the STEM workforce.

To investigate the molecular mechanisms of Flavodiiron NO Reductases (FNORs) and Hemerythrin-Like Proteins (HLPs), researchers will develop new model complexes that are specifically designed to probe important aspects of their chemistry. FNORs contain a non-heme diiron active site that binds two molecules of NO in the initial step of catalysis, followed by N–N bond formation as the key step towards N2O generation. However, it is unclear how FNORs mediate NO reduction at the rather mild reduction potentials of their diiron active sites. Here, it is believed that second coordination sphere (SCS) hydrogen bonds (H-bonds) are the key to greatly accelerating this reaction. The proposed studies will elucidate this key role of H-bonds for FNOR catalysis, using carefully designed model complexes, and further investigate non-heme diiron hyponitrite complexes, which are the proposed (but unobserved) key intermediates of NO reduction by FNORs. HLPs have recently been discovered in pathogenic mycobacteria, such as M. tuberculosis. These enzymes catalyze NO detoxification by oxidation to nitrite, but not much is known about their molecular mechanism. Here, researchers will use specifically designed model complexes to generate oxo-bridged diferric complexes, which are the proposed, catalytically active forms of HLPs, and then study their reactions with NO.